A Conference on Ergodic Theory and its Connections with Harmonic Analysis, May 1993, Cairo, Egypt

Technical Narrative: This proposed conference, organized by North Carolina Central University and Cairo University, is scheduled for 24-28 May 1993 in Alexandria, Egypt. The topic of the conference is the interaction of ergodic theory with harmonic analysis. Participants will come from the Middle East, Europe, and the U.S. Prior to the start of the conference (May 17-22), a series of short courses in Ergodic Theory, Harmonic Analysis, and Number Theory will be held in order to provide the necessary background for mathematicians who have not been introduced to this new and exciting area of research. This proposal supports the participation of approximately 10 U.S. mathematicians. Conference participants will present papers that will be compiled and published as a conference volume. This conference in mathematical sciences fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States, Egypt and elsewhere to combine complementary talents and present research results in areas of strong mutual interest and competence. This conference has an educational and outreach effort that has the potential for generating new scientific activity and new international linkages.